Collaborative Research: Industry University Cooperative Research Center for Wireless Internet

This collaborative Industry/University Cooperative Research Center will perform research in three critical, overlapping areas. Cooperative Communications and Networking research will examine wireless networks build out of nodes that cooperate at the physical and network layers. Cooperative networks offer enhanced capacity, reliability and efficiency relative to infrastructure and ad hoc networks. The second area of research focuses on extending the battery life of portable terminals thereby removing a major enhancing the convenience and value of wireless terminals and sensors. The third research area is Wireless Applications and associated Information Delivery mechanisms. Wireless Applications under investigation include content distribution, applications that leverage the ubiquity of wireless infrastructure with location awareness, and applications that adapt to the capacity limitations of the wireless vis-a'-vis the wired network. Each project focuses on a specific mode of wireless connectivity of the Internet to portable mobile information devices. In addition to developing and evaluating protocols and applications, Information Delivery research addresses security and robustness.